Mathematical Sciences: Characterization of Alexander Schemes, Moduli Spaces for Stable Principal Bundles

This research is in algebraic geometry. The plan is to characterize Alexander Schemes, more specifically, to characterize geometrically schemes of finite type over a field that have the properties of smooth schemes from the point of view of intersection theory with rational coefficients. Also the plan is to construct moduli spaces for stable principal bundles with reductive structure group on smooth projective varieties.